U.S. -Korea Workshop on Smart Infrastructural Systems

$21,400
INT-0221727
Franklin Cheng, University of Missouri-Rolla

The proposal requests support for 10 U.S. participants to a 3-day workshop to be held in Pusan, Korea. This U.S.-Korea Joint Workshop is about Smart Infrastructural Systems. Objectives of the workshop are to assess the current state of theory and practice and to foster communication across a variety of technical disciplines representing theoretical and experimental research as well as design, for a broad range of applications; to stimulate future cooperative research and development in subjects of common need and importance; to evaluate the results of Korea's civil infrastructure research program and their practical application to U.S. engineering practice; and to continue to build the long-term bilateral scientific relationship